Presidential Young Investigators Award: Fundamental Mechanisms of Heat and Mass Transport With Phase Interfaces

Condensation in multispecies systems can be dramatically different from single-component condensation in enclosures. Variation of species concentration along phase boundaries can result in large, nonlinear decreases in condensation rates, with strong impacts on the fluid mechanics. Experiments show that semi-stagnant multispecies systems can exhibit complex bifurcation behavior and large pressure fluctuations, but only approximate modeling techniques are available, even for steady-state recirculating conditions. Here new numerical techniques for boundary conditions are being combined with laser holography experiments to determine species distributions. In a second area of research, conjugate heat transfer effects on nuclear boiling will be investigated under conditions of strong convection, as occur in critical flashing flows in nozzles, pipes, and cracks. Conjugate heat transfer in the wall material will result in some wall subcooling at the temperature inflection point where bubble nucleation occurs. Under conditions where this wall subcooling is large, bubble nucleation will be depressed and large liquid superheats observed, strongly altering the flow dynamics. This new hypothesis provides good correlation of existing experimental data over wide superheat ranges, but study of heat transfer under high velocity flashing conditions is required to permit nonempirical modeling. A third topic of interest is multiphase transport in porous materials. Under certain conditions, experiments have shown solute leaching and transport are enhanced under unsaturated conditions. Most studies however, particularly for geologic repositories for high-level nuclear waste storage, assume saturated conditions as "worst case" scenarios. Here research is focusing on two and three-dimensional transport in unsaturated systems, paying particular attention to the waste forms of species affecting leaching rates, ion exchange and mass transfer, and coupling between the fluid mechanics and temperature, concentration, and pressure fields. When gas, vapor, liquid, and solid phases coexist, the fundamental mechanisms of heat and mass transport can be greatly complicated by behavior at phase interfaces. Often the location, thermodynamic state, and heat and mass transport across the phase interfaces cannot be modeled or even measured experimentally. These difficulties are being addressed by research on three specific topics, with primary application to nuclear and conventional energy conversion systems, and processing and storage systems for nuclear and chemical wastes.